International Conference on Tree-Rings, Environment and Humanity; Tucson, Arizona; May 17-21, 1994

Abstract ATM-9400182 Leavitt, Steven University of Arizona Title: International Conference on Tree-Rings, Environment and Humanity This award will provide partial support for the 1994 "International Conference on Tree Rings, Environment, and Humanity; Relationships and Processes" which will be held in Tucson, Arizona, on 17-21 May 1994, and will be hosted by the Laboratory of Tree Ring Research at the University of Arizona. The conference will offer an opportunity for professional scholars and students interested in tree-ring research to meet and to discuss current progress and future directions of world dendrochronology. The International Conference will feature discussions on the full range of dendrochronological applications and techniques including paleoclimatology and global change. The theme of the conference, stresses the application of tree-ring research to understanding environmental and cultural processes. The conference will address aspects of the past and future Earth, including its physical, biological, and social systems.